UMEB: Recruiting Native Americans into Environmental Science

0203404
Pierotti

This project involves collaboration between three universities in Kansas
and will train a number of Native American undergraduates in research
techniques related to ecology and environmental science. Unlike many
programs that offer only a brief research experience, this program will work
with students over a 2-4 year period and mentor them through to graduation
with a bachelor's degree. The PIs on this program have graduated more than
25 Native Americans over the last 7 years, and most of these graduates have
gone on to attend graduate school.

This award includes a supplement from the Central and Eastern Europe Program
of NSF's Office of International Science and Engineering to fund student and mentor
travel to Siberia for research on indigenous knowledge as part of a collaboration
with scientists and students at Gorno-Altaisk State University.

The significance of this program lies in recent discoveries that Indigenous
communities represent stores of knowledge that both add to and compliment
scientific knowledge obtained through the methods of the Western scientific
tradition, e.g. indigenous knowledge 1) reveals connections between
ecological communities that are studied separately and remain unlinked
under Western scientific paradigms, and 2) give insight into the role of
high quality individuals within population dynamics that are obscured by
Western traditions of population level thinking. Students completing this
program will be better prepared to conduct scientific research within the
context of indigenous knowledge than any other group. Such approaches can
simultaneously increase scientific awareness without losing sight of
spiritual dimensions of human experience.